RUI:Connection to the NSFNET

The University of Redlands is establishing a connection to NSFNET via a 56,000 bit per second line through the University of California at Riverside and the CERFNET mid-level network. The connection enables the school's faculty and students to communicate and collaborate with the international scientific and educational community, and to access network resources such as libraries, databases and supercomputers. This award funds part of the costs for two years.